Development and Evaluation of a Model, Inservice Program forSecondary School Science Teachers

Fifty teachers will participate (25 in the summer, l987, and 25 in the summer l988) in a Master Teachers Workshop for 4 weeks. The foci of this workshop are on the process-structure of science and the developmental learning theory. Each teacher will complete the study of two of three curricula: biology, physics, and/or chemistry. Daily seminars on science and learning-theory bases relating to these curricula will be an intergal part of the workshop. Three follow-up sessions for the paricipants will be conducted during the academic year. Participants will be chosen from school districts in Kansas, Northern Texas, Arkansas, Southern Missouri, Eastern Colorado, and New Mexico. The primary goal of this project is to train a cadre of Master Teachers who will provide inservice for teachers in their school district using learning cycle-based curricula. The participants will be provided with a complete set of curricula materials with permission to reproduce the materials for other teachers within their local school system. Each participant's school system will be required to make significant commitments and provide adequate support systems to enhance the summer participants' local staff development activities.